Function of Disulfide Redox Proteins in Cyanobacteria

This project investigates the thioredoxin system of the filamentous cyanobacterium, Anabaena sp., strains 7119 and 7120. Anabaena is a good model for higher plants, since like spinach chloroplasts, they contain two dissimilar thioredoxins. The genes for both Anabaena thioredoxins have been cloned and substantial amounts of protein are in hand. The differences in redox potentials and biological activity in vitro will be determined and compared with those of the chloroplast thioredoxins. The relative amounts of these thioredoxins in Anabaena under different growth conditions will be determined. Anti-thioredoxin antibodies will be used to detect and quantitiate the proteins in crude extracts using Western blotting. Inactivation of these genes in Anabaena will be investigated in collaboration with J. Elhai at Michigan State University. This work should provide basic information on the in vivo role of thioredoxins in photosynthetic organisms. The proteins being studied are important in the regulation of starch and sucrose synthesis in photosynthetic organisms. Plant productivity is directly dependent on the distribution of these products of photosynthesis.//